Minority Postdoctoral Research Fellowship

Chavez 9308057 This applicant will study the regulation of polypeptide hormone release from storage sites within the cells where they are synthesized. Although much is known about the extracellular factors involved in signalling for release of the hormones, little has been done to elaborate the sequence of events inside the cell. Specifically, the applicant will focus on the role of two rab proteins that have been implicated in regulating release of adrenocorticotrophic hormone from dense granules in the secretory cell. This work will be conducted in the laboratory of Dr. Hsiao-Ping H. Moore at the University of California at Berkeley. ***